Artificially Structured Multilayers Produced by Atomic Layer Epitaxy

Multilayer coatings can vastly improve the performance of X-ray optical elements. They have a variety of current applications in scientific and analytical instruments, and are likely to be useful in X-ray microlithography systems to make increasingly miniaturized semiconductor devices. A prototype reactor has been constructed to begin production of multilayers by atomic layer epitaxy (ALE). Some calculations have been done which indicate that smoother, thinner layers yielding higher reflectivity at shorter X-ray wavelengths are possible.